Studies of Learning and Industrial Organization

9515076 Ellison This project consists of the development of game-theoretic models and empirical analysis of the way in which individuals, firms, and societies learn in particular situations. These projects will try to provide a more general understanding of how "conventions" for behavior in a society arise by discussing when evolution in economic models occur quickly, to explore whether equilibria of game-theoretic models which require players to use mixed strategies can be justified as the outcome of a process of learning in a large heterogeneous environment, and to describe how the need to allocate analytical resources may affect the structure of hierarchies in firms. In addition several empirical studies are undertaken in order to improve understanding of the industries and behaviors in question and more broadly to assess the relevance of recent theoretical work. These studies explore the riskiness of mutual funds' portfolios, the location decisions of manufacturing plants, and the behavior of pharmaceutical firms at patent expiration.